The Third Conference on Function Spaces at SIUE - May 1998

Proposal: DMS-9701711 PI: Jarosz The proposal is for a Conference on Function Spaces at Southern Illinois University at Edwardsville in May, 1998. It will cover a wide range of topics, including function algebras, spaces and algebras of analytic functions, Lp spaces, geometry of Banach spaces, isometries of function spaces, and related areas.